CISE Educational Infrastructure: Undergraduate Curriculum in Massively Parallel Computing

This award is for the development of an interdisciplinary curriculum for undergraduate students in computer science, the natural sciences and engineering. The curriculum will focus on massively parallel computing and will use Boston University's 64-node CM-5. The courses will be project- oriented emphasizing direct experience with computational problem-solving in the sciences and with programming in a massively parallel environement. This award is for the development of an interdisciplinary curriculum for undergraduate students in computer science, the natural sciences and engineering. The six project oriented courses that are proposed: one in fundamental methods and five in advanced computational topics, will emphasize direct experience with computational problem- solving in the sciences and with programming in a massively parallel environment. The results of the curriculum and materials development will be disseminated through summer workshops, publications, and presentations at professional meetings.